National Engineering Education Coalition

The coalition includes eight institutions (Cal Poly, San Luis Obispo, Cornell University, Hampton University, Iowa State University, Southern University, Stanford University, Tuskegee University, University of California, Berkeley) and has a twofold goal: 1) to increase the quality of U.S. engineering education and to increase the number of engineering graduates at all levels, especially among women and underrepresented minorities, 2) to improve the effectiveness of engineering education so as to enhance the quality of the graduates and their effectiveness in industry. The coalition develops, experiments with, and evaluates the effectiveness of a variety of innovative curricula, delivery systems, settings, and pedagogies. In addition, to attract and retain increased number of engineering students, the coalition undertakes intensive activities aimed at improving the image of engineering as a field of study and as a profession. The grantee provides funds for this project that are more than an equal match for the NSF award.